Collaborative Research: "SUPERERUPTIONS," MAGMA CHAMBERS, & PLUTONIC RESIDUE: Insights from Peach Spring Tuff, Significance of Sphene

"This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5)."
Intellectual merit: "Super-eruptions" - explosive eruptions that produce >450 km3 of
magma -arguably are the most catastrophic of all natural processes on Earth. They play
a central role in ongoing debates about the nature of crustal magmatism. Study of
super-eruptions may illuminate [1] the processes by which large quantities of magma
accumulate in the upper crust, are stored and modified, and erupt; [2] the relations
between intrusive and extrusive igneous rocks; and [3] the construction of plutons and
batholiths. We propose a multi-faceted approach to investigate the generation and
eruption of the >600 km3 Peach Spring Tuff (PST: Miocene,
Arizona-California-Nevada). Exposure of the extensive outflow sheet as well as a thick
intracaldera tuff section and related granite makes this a particularly appealing target for
study. The PST phenocryst assemblage comprises a diverse array of accessory
minerals, notably including abundant sphene (titanite), which plays a vital role in both
recording evolving conditions and driving trace element variation. Critical questions to
be addressed include: [1] What environmental factors control occurrence of key
accessory minerals - especially sphene? [2] How does growth of accessories influence
geochemical signatures of magmas - and how can these signatures be used to
characterize evolution of magmatic environments? [3] What are the conditions in giant
chambers immediately prior to super-eruptions? [4] How much do conditions fluctuate,
and are they a direct response to replenishment, eruption, or wholesale contamination?
[5] How long do large systems last, and during how much of their lifetime is there a
large chamber? [6] Are chambers containing super-volumes of eruptible magma
inherently unstable, or is triggering suppressed for unusual lengths of time to permit
accumulation of enormous quantities of magma? [7] How, and how efficiently, are large
volumes of melt-rich magma extracted from crystal-rich residue? [8] How and where are
highly-evolved, high-silica rhyolites generated? [9] What is the significance of similarities
and differences between felsic intrusive and extrusive rocks? [10] Why are highly
evolved plutonic rocks less voluminous than volcanic equivalents? [11] Do giant
eruptions have a different relation to their residual plutonic equivalents than
'normal'-sized eruptions? Are their chambers far larger, or do they more efficiently
extract the eruptible material?
This project will entail an integrated, multi-disciplinary approach involving PIs and
collaborators with diverse expertise and perspectives. The project will combine
extensive field work, elemental and isotopic analyses of rock, glass, mineral, and melt
inclusion samples, dating using several complementary geochronological methods,
quantitative textural investigations, and experimental studies aimed at elucidating the
stability and saturation behavior of sphene. We will employ, among other methods,
NATIONAL SCIENCE FOUNDATION
Proposal Abstract
Proposal:0911726 PI Name:Miller, Calvin
Printed from